Photoionization and Spectroscopy of Atoms and Molecules

Professor Caldwell will continue her studies of atomic structure and dynamics of ionization using synchrotron radiation as the optical source. She will study two new aspects of the dynamics of energy flow inside atoms: inner-shell ionization of open-shell atoms, and electron-electron correlations by means of photoionization coincidence methods. The correlation work is important in answering one of the most important questions in atomic structure: how does the motion of three charged particles correlate as they recede from each other after absorption of ionizing radiation?